The Abundance of the Stable Carbon Isotopic Ratio of Atmospheric Carbon Dioxide and Oceanic Carbon in Relation to the Global Carbon Cycle and Climatic Change

9711882 Keeling The project will continue Professor Keeling's 40-year atmospheric carbon dioxide time series and his measurements of dissolved inorganic carbon (DIC) and titration alkalinity (TA) of surface sea water at an array of stations (a 13-yr record). The long term goal of this work is to document how the carbon cycle is responding to human activities and to variability in climate. As part of this science objective, the project will continue to produce time series data on the stable carbon isotopic ratio of carbon dioxide and DIC on the same samples of air and water, to identify impacts on the oceanic and terrestrial carbon cycles. The stable isotope information will be combined with laboratory studies to predict to high accuracy the partial pressure of CO2 in sea water from DIC and TA data. Finally, the patterns in the time series data sets will be compared to patterns observed in records of global temperature and of the greenness of vegetation. This additional task is intended to produce knowledge about the fluxes and storage of carbon in natural systems and their relation to climate by detecting temporal and spatial patterns in atmospheric CO2. ATM-9711882